XIth International Symposium on Comparative Endocrinology; May 14-20, 1989; Malaga, Spain

This proposal would partially support the travel of 50 scientists to attend the XIth International Symposium on Comparative Endocrinology to be held near Malaga, Spain from May 14 to May 20, 1989. The symposium will integrate all areas of comparative endocrinology, from unicellular organisms up to and including mammals while covering all aspects from the molecular to the organismic level. The symposium is intended to assure the active participation of younger scientists and intends to serve as a forum for the formation of an International Federation of Comparative Endocrinologists. Two satellite symposia associated on the aquaculture of teleosts and the reproduction of cyclostomes will follow. The symposium is open to everyone interested and has been announced in the scientific journals. The proceedings will be published within 3 months of the meeting. Four hundred to five hundred participants are expected from more than 40 nations, with 150 U.S. scientists expressing an interest. Travel funds will be used to support the travel of junior as well as senior scientists with appropriate regard for the support of women and minorities. This international symposium will allow the meeting of scientists from around the world to exchange ideas in a timely fashion on the endocrinology of diverse species, a topic of great importance to the area of biodiversity.